In-Situ Determination of Refractive and Absorptive Indices of Soot Particles

Many combustion devices have an important energy transfer contribution from radiation heat transfer. Particle radiation plays a significant role in many industrial applications such as pulverized-coal, oil, and gas-fired furnaces, radiative burners, solid propellant rockets, and gas turbine combustors. Unfortunately, the radiative properties of the particulates are not well-understood nor well-characterized. This proposed work seeks to quanitfy the radiative properties of particulate (soot) in a wide variety of combustion devices. The commercial application of this work would be a device to determine the in-situ refractive and absorptive indices of soot.